A Laboratory for Nonlinear Studies

The laboratory provides high-speed processing and high-resolution graphics for involving undergraduate students in an interdisciplinary area of current interest -- Chaos. This furnishes the undergraduate students with an opportunity for interdisciplinary work as well as experience with a contemporary research topic. The laboratory uses technologically advanced workstations to achieve both the speed and the resolution desired. The grantee provides funds for this project that are an equal match for the NSF award.//